A Thin Film Materials Physics Course for Southwest Texas State University

Carlos J. Gutierrez DUE 9552338 Southwest Texas State U FY1995 $50,000 San Marcos, TX 78666 ILI - Instrumentation Project: Physics Title: A Thin Film Materials Physics Course for Southwest Texas State University An upper-division Materials Physics Laboratory (MPL) course will be established in the Department of Physics at Southwest Texas State University (SWT) which will be the culmination of a newly organized and focused "materials physics" curriculum track whose on-going development was initiated by changes in the introductory physics sequence four years ago. The new "materials physics track" is a coherent response to regional market-place pressure for thin film science and technology education recognized by an independent and broad Industry Advisory Panel. This newly-organized and focused curriculum track will culminate with the proposed MPL course, and offer a curriculum option at SWT which addresses a national need for changes in undergraduate physics education aimed towards improving baccalaureate marketability for private sector opportunities in marketable materials science-related areas. In addition, this proposal will also have a direct impact on the existing Modem Physics II course (part of both the "traditional" and new "materials physics" tracks). The laboratory components for both the MPL and Modern Physics II courses will familiarize students with "hands-on" critical analysis skills utilizing new instruments (atomic force microscopy, four-point probe apparatus) and course-upgraded existing instruments (scanning electron microscopy with energy dispersive spectroscopy, high vacuum magnetron sputtering, x-ray analysis, and magnetometry) which are commonly found in private sector thin film-related industries (i.e. the semiconductor fabricatio n industry). These skills will be learned in a supervised mock research team environment focusing on recently published research themes found in the professional literature. The proposed resources will be included in plans for outreach programs involving minority physics majors, and high school students (and their teachers). Additional capital equipment and undergraduate human resource enhancement tools (internships, scholarships) will be sought in conjunction with SWT's Industry Advisory Panel.